Photophysiological Regulation of Spectral Quantum Yield and its Linkages to Bio-Optical Properties of Phytoplankton

A bio-optical model was developed to predict phytoplankton production from field measurements of spectral irrdiance and pigmentation combined with testable assumptions regarding cell absorption and spectral quantum yield (0y). Laboratory testing of the model will probe the spectral relationships between photosynthetically absorbed radiation (Qphar), quantum yield )0, production/Qphar) and rates of primary produtivity for different size classes and spectral groups of phytoplankton. The model derives cell absorption from spectral reconstructions based on chlorophyll and accessory pigment concentrations. Spectral comparisons of reconstructed versus direct measurements of absorbance provide means of distinguishing the wavelength- dependent contribution of photosynthetic and/or photoprotective pigments to algal absorption from those of cell packaging effects and non-algal matter in the surrounding water. Errors in estimations of in vivo maximum (0max) and spectral (0y) quantum yield are of greatest significant to accurate bio-optical predictions of primary production. Dr. Prezelin will identify the sources and magnitude of variability in phytoplankton spectral properties which determine quantum yield. Results would provide insights into how different sized and spectrally diverse phytoplankton utilize radiant energy, influence the spectral characteristics of water-column optical properties, and regulate rates of photosynthesis and photoinhibition. Results would improve current and future field applications for this and similar bio-optical models intended to examine and predict temporal/spatial variability in primary productivity in marine environments.